Particle/Wall and Partical/Boundary-Layer Interactions

Two phenomena occurring in particulate flows, namely, heat transfer during collisions between particles and surfaces, and the interaction of the particles with the momentum and thermal boundary layers will be studied. Experiments will be performed using particle diameters between 1 to 10 mm, low and high thermal conductivity particles, and laminar and turbulent flows. Flow visualization, particle tracing, and Laser Doppler Anemometry will be used for the velocity measurements. The rate of change of sensible heat of a collector (particle/wall interaction) and the change in local rate of surface heat transfer (particle/boundary-layer interaction) will be measured in the heat transfer experiments. In addition, analytical/numerical study of the elastic impact will be made by allowing for variable surface areas, heat transfer through the surrounding gas (gap contribution), material property differences between the particle and the surface, particle spin, and surface roughness. These studies will determine the role of particles in heat transfer from dilute particulate flows (such as in drying and the freeboard portion of the fluidized beds) and will supply the fundamental knowledge needed for understanding and prediction of dense phase systems. Many particle systems, such as dryers, fluidized beds and particle processing (mechanical or chemical loops) require transfer of heat between fluid/particle mixtures and confining or submerged surfaces. Two of the major heat transfer mechanisms are the direct transfer of heat between the particles and these surfaces (conduction), and direct heat between the fluid and the surfaces. The latter is influenced by the motion of the particles. Presently, the conduction contribution is not known for practical cases where the particle surface is not smooth, and when the particle undergoes a spin and arrives at the surface obliquely. The extent of the disturbances caused in the flow field, by the motion of the particles, is also not yet known. This study aims at furnishing these needed fundamental data on the influence of particles on surface heat transfer rates.